Conference on Quantum Devices and Circuits to be held at Alexandria, Egypt, June 4-8, 1996

9612780 Leburton The International Conference on Quantum Devices and Circuits is dedicated to recent research I various aspects of the science and engineering of electronic and optical devices, as well as circuits and systems that exploit mesoscopic or quantum-mechanical phenomena in their operation. This conference will be first to bring together experts from diverse fields. It is intended to promote interaction between physicists, molecular chemists, engineers and computer scientists who all have a role to play in the development of the next generation of computers and electronics employing nanotechnology. NSF funds will support graduate students attending the meeting. ***